Algebraic Topology

DMS-0306429
Matthew Ando and Randy McCarthy

Ando and McCarthy will study the relationship between stable homotopy
theory and mathematical physics and number theory mediated by elliptic
cohomology, and the relationship between stable homotopy theory and
algebra mediated by K-theory. Ando will use elliptic cohomology to
investigate what string theory and the theory of elliptic curves have
to say about the topology of compact manifolds. He is particularly
interested in bringing recent work on open string theories and
D-branes to bear on problems in elliptic cohomology. McCarthy will
develop a theory of Witt structures for bimodules and a theory of
smoothness and De Rham cohomology for commutative ring spectra. The
former offers new insight and substantial generalizations of
calculations of Hesselholt and Madsen, while the latter offers the
possibility of developing a crystalline Chern character and so
extending to commutative ring spectra the work of Bloch.

The last few years have seen an astonishing proliferation of
unexpected new structure in topology, involving new interactions with
other areas of mathematics and physics. Ando and McCarthy are
particularly interested in articulating these new connections.
Ando's research seeks to give explicit form to the deep and surprising
relationship between topology, high energy physics, and number theory
signaled by elliptic cohomology. The traditional paradigm of
algebraic topology is the use of algebra to model phenomena in
topology. McCarthy's research turns this paradigm upside down, using
the deep structure of topological spaces to tackle hard problems in
algebra.